Cognitive Processes in Bilinguals

The goal of the proposed research is to use the bilingual as a vehicle to
illuminate basic cognitive processes that serve as the interface between
memory and language. Because bilinguals typically have at least two
words available for any given concept, one in each of their languages,
the process by which they select the appropriate word to speak provides
a useful tool for investigating language production and competition
across cognitive systems. Recent research on the way in which bilinguals
understand and produce words in their two languages suggests that both
languages are always active to some degree. How then do bilinguals
manage to speak words in the intended language most of the time? The
specific focus of the planned research is to examine the factors that
modulate the competition that occurs when the bilingual's two
languages are active. The experiments have two aims. One is to identify
the conditions that give rise to cross-language competition. Each of the
proposed experiments involves spoken language production in the first
language (L1), the second language (L2), or under mixed conditions in
which the two languages are directly competing with one another. A
second aim of the proposed experiments is to identify the factors that
modulate the activity of each language. These factors are hypothesized
to include external cues that serve to signal one of the bilingual's two
languages as well as internal attentional strategies that function to
control the consequences of activation from the unintended language.
The results of this work will have specific implications for models of
bilingual language processing but will also provide important
constraints for understanding the way in which skilled performance is
controlled.